Dynamics of Mutator Evolution: An Experimental Study

9981518
Sniegowski

This project will study why high rates of genetic mutation arise
and persist in bacterial populations. The PI has previously documented the
origin and persistence of high mutation rates caused by mutator genes in
populations of Escherichia coli that have been propagated in the
laboratory. The three goals of the current project are: 1) to understand
why mutator genes are successful; 2) to study the dynamics of mutator genes
in populations; and 3) to document the DNA sequence changes that give rise
to mutator genes in these populations. Goals 1 and 2 will be achieved
through laboratory experiments in which E. coli cells bearing mutator genes
are competed against their normal counterparts. Goal 3 will be achieved by
DNA sequencing of mutator genes.

Because mutation is the ultimate source of genetic variation,
elucidating how mutation rates are established and maintained is of
fundamental importance to our understanding of genetics and evolution. But
substantial societal implications exist as well: Mutator genes have been
associated with pathogenicity in bacteria and with cancer in humans. The PI
has shown that these mutator genes and the mutators in his study system
arise from defects in the same general genetic pathway, and further
research has suggested that similar population-level processes are likely
to be involved in the laboratory and in nature. This project is therefore
likely to contribute significant insights in these areas of societal
importance.